PDOS: Experimenting with Garbage Collection in an Otherwise Conventional OS

Security holes and crashes at the operating system (OS) level
represent a serious infrastructure problem. These OS bugs are often
the result of memory management errors, which are very hard for
developers to avoid. In the long run, a broad class of
memory-management errors can be prevented by using a high-level,
type-safe language, but whether these languages are suitable for
kernel implementation remains an open question. Unfortunately, any
given experiment to answer the question (i.e., using a particular
high-level language) involves many differences in implementation
compared to a conventional kernel, making it difficult to draw
conclusions about which parts of the high-level approach work and
which parts do not. This project is an experiment specifically about
garbage collection for legacy OS kernels, changing as few other
implementation issues as possible. Concretely, the research is about
developing tools to automatically transform the C source code of a
conventional kernel so that it is compatible with a variety of precise
garbage-collection strategies. The project's ultimate goal is to check
whether the OS becomes usefully more reliable as a result of garbage
collection, and to measure the performance costs in both desktop and
embedded environments. If the experiment shows that the OS improves at
a reasonable cost, then the research will have shown how to increase
the reliability of a major part of today's computer systems
infrastructure. Tools generated by the project will be made publicly
available for use in research, for application to practical software,
and for pedagogical purposes.